A Microphone Array System for Speech Recognition Input

This award in the NSF/DARPA Joint Initiative on Image Understanding and Speech Recognition will support development of a directional microphone chip for tracking sound sources. This acoustic array, together with a new nonlinear optimization algorithm, should permit nulling of noise sources and tracking or nulling of individual speakers. The ultimate goal is improved speech recognition in noisy or acoustically confusing environments.